Differential Cross-Section and Differential Cross-Section Ratio Measurements of Electron-Impact Excitation of Ne and Ar

This RUI award provides funding for the continuation of the PI's research program in electron scattering off atoms. In the coming period, the PI will measure differential cross sections, using a method of mixtures, and differential cross-section ratios of the electron-impact excitation of neon and argon from the ground state to the first excited state. The ratio measurements will provide sensitive tests of both target structure as well as scattering dynamics in theoretical models.